Workshop on Addressing the Grand Challenges of Traceability

Abstract

This award funds a workshop on traceability in Software Engineering, an important subject that has received only fragmented and superficial attention over the past years. The proposed workshop will bring together software engineering researchers and practitioners to define and explore challenge problems in traceability. Experts from other fields such as human computer interaction, information retrieval, and artificial intelligence are also invited to participate in the workshop to provide cross-pollination of ideas.